FT-IR Diagnostics for Environment Monitoring of Effluent Gases

This is an award to support research on development of a flue gas monitoring system for determination of the potential air contaminants in emissions of gases from combustion processes. The system is based on the application of principles derived from use of Fourier Transform Infrared Spectroscopy in monitoring nitrogen, sulfur and chlorine in an on-line, diagnostic instrument that can be used for determination of the quality of effluent gas streams. Exhaust gases from combustion of fossil fuels and from combustion of solid wastes results in the production of byproduct gases that pollute air into which they are discharged. Results of this project are expected to determine the feasibility of producing an instrument that could be used to monitor nitrogen and sulfur oxides and air toxics such as hydrogen chloride in exhaust gases from combustion processes. The proposal leading to this award was submitted in response to NSF 92-30, Small Business Innovation Research under Topic No. 25d, Environmental Systems.